Long-Range Electron Transfer Reactions in Proteins

This award is the starter grant increment of Dr. Colon's Postdoctoral Fellowship in Chemistry. The research will result in a better understanding of the reorganizational energy of molecules as a function of distance in long range electron transfer reactions. Electron transfer rates will be measured for Re(II) and Re(I) coordinated to human myoglobin variants. The effects of distance of electron transfer and of the electronic coupling in the protein on electron transfer rates will be evaluated. Flash-quench and photoinduced electron transfer experiments will be used to obtain the desired rates. %%% Biological electron transfer plays major roles in respiration, photosynthesis, and immune response. The research to be carried out will provide a better insight into these important reactions. These insights will be helpful to scientists studying many aspcects of human health.